Lithostratigraphic Controls on Granites and Related Ore Deposits of Caucasus and Mongolia

This project is a one-year study focused on clarifying the field, age, spatial, and genetic relationship of normal and strongly- contaminated and reduced peraluminous granite plutons with specific pre-batholith wall rocks of the Caucasus. Biotite mineral and whole rock chemistry will be used to characterize the redox state and halogen contents of magmatic and hydrothermal fluids. Four weeks of field work in the U.S.S.R. is required for five north-south transects crossing the Caucasus, ahd the research will be done in collaboration with three Soviet geologists. A return visit for them to the U.S. will provide an opportunity for them to engage in research of magma/wall interaction.